Institutional Infrastructure Miniority Institutions Program:A Proposal for the Development of Curriculum and Research Laboratories for Computer Science

9313341 Lupton This award provides for planning to develop a strategy for the growth of a comprehensive computer science education and research program. The plan includes the incorporation of a new computer science curriculum, and the development of four laboratories: an artificial intelligence laboratory, a computer graphics laboratory, a terminal laboratory accessing the network and supercomputer, and a PC workstation laboratory. ***